Industry/University Cooperative Research Center for Iron and Steelmaking Research

ABSTRACT 9612507 Fruehan This award provides phase out funding for the Carnegie Mellon University Industry/University Cooperative Research Center for Iron and Steelmaking for its final year of support in the I/UCRC Program. The center performs fundamental research in ironmaking, steelmaking, refining, and casting; educates students with strong technical skills applicable to the steel and steel-support industries; establishes a forum to discuss the long-term research needs of the industry; and provides a mechanism for leveraging industrial funds through cooperative research government support. In addition, the award supports the NSF evaluator to provide data to the NSF to evaluate the performance of the center.